Undergraduate Graphics Laboratory

The Undergraduate Graphics Laboratory supports the new course, The Science of Imaging: Computer Graphics for Non-Programmers, which serves as an introduction to science for non-science-majors. The course is a vehicle for instilling in students the excitement of mathematics and science and the importance of studying such subjects in the liberal arts tradition. The Science of Imaging interweaves the theory of rendering graphical images with appropriate experimentation and projects, enabling students to see how science is done and how its theories can be applied. The rendering of realistic images is used to introduce the science and mathematics on which graphics are based. The course is not intended to replace the students' need to take complete courses in mathematics and/or science, but to provide motivation for students to take the courses.